U.S.-China Cooperative Research: Collaboration on Effects of Alternative Technologies on Energy and Pollution

9512868 Polenske This award supports collaboration between Dr. Karen Polenske, MIT Department of Urban Studies and Planning, and Professor Chen Xikang, Institute of Systems Science, Chinese Academy of Sciences, Beijing, China on research on the effects of alternative technologies on energy and pollution. The study will investigate the principal energy-efficiency improvements being undertaken in the electricity generating sector of the PRC as well as assess the economic effects of alternative technologies on energy and pollution in the household sector. The project has immediate importance for global energy use and pollution reduction, given the magnitude and rapid urbanization of China's population and the brisk growth of the national economy.